Support of US Participants to Attend the Workshop "At the Frontiers of Condensed Matter IV: Current Trends and Novel Materials;" December 9-12, 2008, Buenos Aires, Argentina

This award provides support in part for the international workshop "At the Frontiers of Condensed Matter IV: Current Trends and Novel Materials". The workshop will be held in Buenos Aires, Argentina, December 9-12, 2008. The workshop is centered on theoretical developments in condensed matter with a focus that includes: high temperature superconductors, low dimensional systems, dilute magnetic semiconductors, spintronics and nanomagnetism, multiferroics and multifunctional materials, graphene and other monolayer materials. This workshop contributes to scientific exchange in growing scientific areas across the Americas. Europeans will also participate. It also enhances NSF supported international activities involving the Americas and provides an opportunity to stimulate collaborations involving various countries in the Americas. NSF support enhances participation of early-career scientists and members of underrepresented groups.